Doctoral Dissertation Research: Transnational Environmental Activism

SES-1030605
PI: Ruth Reitan
Co-PI: Shannon Gibson
Institution: University of Miami

This study will identify and explain "waves of radicalization" within and by transnational environmental networks targeting the United Nations climate change negotiations from 1995-2010. Data will be gathered through semi-structured interviews at various global activist demonstrations and through a longitudinal, protest event and discourse analysis. The results of this study will contribute to sociology, comparative politics, and international relations, and to the more specific study of transnational social movements and contentious politics.

Broader Impacts
This project seeks to advance an understanding of the individual, social, and structural factors that shift collective protest and claims making toward more radical stances. Additionally, this project will study the most marginalized sector of the environmental movement - the Global South. This research will be conducted in South America, Africa, and Asia in order to include Southern perspectives on global mobilization against ecological degradation, particularly from indigenous peoples and landless workers movements.